U.S.-Korea Cooperative Research: Inorganic Nanostructure/Dye Molecules Hybrid Systems Studied by Nuclear Magnetic Resonance

INT-0202894
Yue Wu
University of North Carolina at Chapel Hill
$24,000

The project is about international collaboration with researchers in Korea, focusing on the structure and opto-electronic properties of inorganic nanostructure/dye molecule hybrid systems. This research will use nuclear magnetic resonance (NMR) to study gas adsorption in single walled carbon nanotubes (SWNTs) and the structure of SWNT/dye system. These nanostructure-based hybrid systems could play an important role in future technological developments such as molecular sensors and solar cells. The collaboration will help to advance research on the opto-electronic properties of nanostructure/dye hybrid systems.